QSB: Quantitative Analysis and Studies of the Correlation Between mRNA and Protein Expression Profiles in E. coli

The aim is to develop a meaningful mathematical description of translation, which can provide insights into the mRNA-protein expression relationship in Escherichia coli. The two overarching objectives of the proposed efforts are: (i) the identification of the parameters that affect the correlation of mRNA and protein expression based on the formulation and computational analysis of mathematical models of the translation processes, and (ii) the quantification of these parameters using the information derived within the experimental component of the proposed work.